Development of digital receiver technology and the construction of a 327 MHz array optimized for the detection of the hyperfine deuterium line

Rogers
AST-0115856

Digital receiver technology to design, build, test and apply a 327 MHz array radio receiver optimized for the detection and characterization of hyperfine deuterium line in the spectra of radio sources across the sky will be completed. Measurement of the Deuterium line feature may enable the determination of the D/H ratio at different parts of the sky. The D/H ratio and its distribution probe fundamental physical parameters that reveal important factors in our understanding of the evolution of the Universe. The instrument development, in particular the digital receivers, RFI mitigation, beam forming, beam steering will serve as a pathfinder for the next generation ground-based radio telescopes. There is significant student participation.
***